An Environmental Study of the Guanajibo River Basin in Southwestern Puerto Rico

9352997 Davila The Inter American University of Puerto Rico, San German campus, will initiate a 6-week residential Young Scholars project in environmental sciences for students in grades 10 thru 12. The first week of this YSP will be devoted to lectures. This will be followed by five weeks of laboratory exercises and additional study of the environmental factors that affect the potable water supply sources in southwestern Puerto Rico. Field trips, career explorations, ethics discussions and preparation of research project summaries are also included. Several follow up sessions complete the project activities. ***